RUI: Relativistic Many-Body Calculations of Atomic Structure

Theoretical studies of photoionization on atomic systems are proposed which are an extension of the authors previous work. An important part of the proposal is the development of computer codes which will incorporate relativistic effects into the many body perturbation theory (MBPT) approach used previously and will thus make possible an analysis of these effects in MBPT calculations of photoionization.